Mini-symposium on Mathematical and Computational Modeling of Biological Systems

Seshaiyer
The investigator organizes a symposium on mathematical and
computational modeling of biological systems at Texas Tech
University from November 6-8, 2003. The conference consists of a
series of lectures given by outstanding scholars who have
contributed extensively to the central theme. The talks cover a
broad range of topics, including the mathematics of cardiac
arrhythmias, past successes and future challenges in continuum
mechanics of soft biological tissues, a 20 year retrospective of
the Chay-Keizer model, tumor mechanics, computational biofluid
dynamics, and computational models of cardiovascular surgery
planning. The main objectives of the meeting are to: (a)
disseminate the most recent advances in mathematical and
computational approaches in understanding biological systems, (b)
increase the level of awareness in nurturing mathematical and
computational research in biological systems, (c) to train senior
undergraduate, graduate, post-doctoral students and early career
scientists in interdisciplinary aspects of problem solving, and
(d) initiate and promote new collaborations between mathematics
and all areas of science, engineering and science education.
The theme of the meeting is the opportunity to use
mathematical and computational tools to understand biological
systems. The meeting includes experts giving lectures on diverse
topics in the underlying theme, with the expectation to provide
members of the mathematical and engineering community an
opportunity to learn about new research venues. Participants
include undergraduate and graduate students and postdoctoral
researchers. The meeting provides a forum for the exposure and
exchange of ideas, methods, and results in the underlying theme
of the conference. The conference provides an excellent
opportunity to assess the current developments and future
directions in this area. Special efforts are made to encourage
women and underrepresented minorities to pursue careers in
science, especially in interdisciplinary areas that bridge the
biological, mathematical, and computational sciences.